Acquisition of a MALDI-TOF mass spectrometer

With this award from the Chemistry Research Instrumentation and Facilities (CRIF) Program, the Department of Chemistry at Rensselaer Polytechnic Institute will acquire a MALDI-TOF Mass Spectrometer. This equipment will enhance research in a number of areas including a) polymer synthesis using novel polymerization processes; b) de novo design of synthetic water-soluble and membrane-soluble proteins; c) preparation of polymers using photo- and electron beam initiated polymerizations; d) studies on the origin of life and formation of RNA from prebiotic molecules; and e) protein surface studies.

Mass spectrometry (MS) is a technique used to probe intimate structural details and to obtain the molecular compositions of a vast array of organic, bioorganic, and organometallic molecules. The results from these studies will have an impact in a number of areas including materials chemistry, polymer processing and biology.